Purchase of an Electrochemical Analysis System

*** 9708630 ORWOLL This award from the Chemistry Research Instrumentation and Facilities Program (CRIF) Program will assist a junior faculty in the Department of Chemistry at the College of William and Mary to acquire a electrochemical analysis system. This equipment will enhance research in the area of metal-containing oligomers and polymers. The electrochemical analysis system is concerned with measuring the processes and factors affecting the transport of charge across interfaces between chemical phases. This technique allows researchers to study electrode reactions that might include an unstable intermediate such as radical ion, and to conduct electrosynthesis. ***